Postdoctoral Fellowship: MSPRF: Geometric Double Affine Representation Theory beyond Link Homology

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Xinchun Ma is “Geometric Double Affine Representation Theory beyond Link Homology”. The host institution for the fellowship is the Massachusetts Institute of Technology and the sponsoring scientist is Roman Bezrukavnikov.